Quasirandomness in Discrete Probability Theory

The PI proposes to conduct research on quasirandom analogues of
discrete random systems, both as tools for simulation problems
and as objects of study in their own right. Quasirandom simulation
schemes often are just as fast as random simulations schemes, and
when applied to estimation problems typically give smaller error.
The PI's research will study such schemes, and will explore new ways
of removing the ``noise'' from random systems while retaining key
features of their average-case behavior, building on earlier work
by the PI, Lionel Levine, Yuval Peres, Josh Cooper, and Joel Spencer,
among others. The resulting non-random systems exhibit startling
symmetry and unexpected structure that call out for explanation.

Current technology depends heavily on simulation, and many existing
methods of simulation make use of randomness, whether or not the
system being simulated has a random element to it. This ``Monte
Carlo Method'' has had huge success in the past century. My work
will explore the notion that in many cases, what makes Monte Carlo
work is not randomness per se but certain regularities that are
consequences of randomness. By bringing these regularities to
the fore and jettisoning randomness itself, one should be able to
devise general methods of simulation that are more accurate.